Network Probe Platforms for Metacenter Network Performance Testing

9320651 Butler This award funds two Iris Indigo workstations to gather network performance measurements for traffic between the National Center for Supercomputer Applications and the three other NSF-funded supercomputer centers. The centers have joined together to form a national Metacenter, to be linked by a high-speed network called the National Computational Environment. The dedicated probe platform supported by this award provides a mechanism for testing, measuring and improving network performance over the existing and future communication links. Duration of the award is one year. ***